Magnetization Processes in Ultrathin Epitaxial Films

9531115 Zangwill The magnetic properties of ultra-thin (< 5 monolayers) films are likely to be strongly affected by the surface roughness. The step edges of a rough film are sites of reduced symmetry and the magnetic moments located at these sites must experience different exchange constants as well as different anisotropy fields. The principal objective in this grant is to develop a consistent theory of magnetic hysteresis that connects the structure and morphology of these materials to their coercivity and remanence The program calls for extensive numerical calculations augmented by analytic and numerical analysis of toy models and continuum equations suggested by the simulations. The calculations offer direct evaluation of various experimentally measurable quantities and thus afford comparison with the experiments. %%% Magnetic thin films are used in a variety of applications, the most well known being in memory devices. This grant is comprehensive program of theoretical research to study the magnetic properties of realistic thin films i.e. the program incorporates the structural and morphological effects (of surface roughness) in an essential way. ***